Theory, Algorithms and Models for Matrix Balancing

The research in matrix balancing and its application to data adjustment in economics will investigate (1) diagonal scaling problems, (2) preconditioning methods for nonlinear network optimization, and (3) second-order scaling algorithms. Balancing problems arise in many diverse fields, including economics, urban planning, image processing, and stochastic modelling. The PI's propose to implement scaling algorithms and specialize a truncated Newton algorithm for solving problems arising in the application area of their expertise-- namely, general equilibrium modelling-- in the belief that it will have application beyond that specific area. To address modeling issues and applications of this theoretical and algorithmic research they propose as future work the integration of their algorithms within high-level algebraic modelling languages. This will allow them to conduct experiments with real problems and will facilitate the dissemination of their work to a wide audience. Support for this future research is currently being sought from funding agencies other than NSF.